Multi-Institutional Mechatronics and Material Handling Educational Laboratories - Course Development and Student Collaboration

Engineering Mechanical (56)

This project is developing advanced mechatronics course materials based on manufacturing and materials handling. Through a partnership between a 2 year and a four year institution, students are learning multidisciplinary system knowledge through hands-on laboratories. Collaborative teams of students are applying simulation tools and experimentally validating concepts through sensor/actuator integration, controller hard and software and hands-on activities. The students are working with a multi-directional conveyor handling system with reconfigurable modules for different architectures and flexibility for expansion and insertion of different sensors/actuators. The system also incorporates a robotic arm and scanner for part placement.

Both pre and post questionnaires are being used to evaluate the course and associated laboratory and are being administered by assessment experts. The Material Handling Institute is also participating, providing experts to assess the materials and activities being developed. Results are being disseminated through journal publications and a workshop at a national conference.